Thallium Bromide Nuclear Detectors

This grant supports R&D toward a nuclear radiation detector based on the cubic semiconductor TlBr. The research will be focussed primarily on developing techniques for producing single crystals of high purity Thallium Bromide. The high atomic numbers of the constituent materials of this new semiconductor imply high photo-electric absorption efficiency, and correspondingly more compact detectors than are now commonly available. In addition, the 2.5 eV bandgap of the material permits operation at temperatures up to 250oC. A detector with these characteristics would find a wide range of specialized applications.